Acquisition of Instrumentation for Image Analysis in Biology

This project proposes acquisition of instrumentation for image analysis and an inverted microscope to provide three research teams with the technological capability to rapidly and accurately analyze various organismal and tissue parameters. The instruments requested are the Leica Quantimet Q-500MC Image Analysis system with an Optronics Video Camera, and an Olympus IX-70 inverted microscope. The projects proposed involve both faculty research and research training primarily of undergraduates. The research experience is widely used as a teaching tool in our department. The research activities planned include a study of programmed cell death and cell cycle control in plants, study of muscle cell development and culture in fish, and a analysis of feeding behavior and movement in anostracans (fairy shrimp). Activities of these projects involve making large numbers of measurements from light and electron microscope data, analyzing labeling density, position and/or intensity in protein localization work, and assessing characteristics of organisms' three-dimensional morphology as it relates to movement. Currently some of the measurements required may be made by hand, other analyses are impossible without the computer capability. Acquisition of the image analysis system with archiving capability and the inverted microscope will enable us to rapidly and accurately obtain and analyze the data these studies require.